SBIR Phase I: Automated Safety/Security Compliance Verification and Enforcement for Autonomous Vehicle Software

The broader impact of this Small Business Innovation Research (SBIR) Phase I project is to broaden autonomous vehicles (AV) adoption. This project will customize program analysis for the AV software domain to achieve automated safety/security compliance verification and enforcement.

This Small Business Innovation Research (SBIR) Phase I project proposes to leverage novel static program analysis and formal verification techniques along with runtime safety/security enforcement to complement existing AV software testing with two major technologies to: i) correct safety compliance issues and enforce user-configurable safety requirements, ii) detect and mitigate common security vulnerabilities. Given the input of safety rules or vulnerability patterns, the proposed technology will provide strong guarantees of zero false negatives in compliance verification. This means that once compliance of a rule or security property is verified, it is guaranteed that no violations of that rule or security property exist in the software.